SBIR Phase I: Development of a Commercial Culture of Dehalococcoides for Anaerobic Treatment of PCB's

This Small BusinessI nnovationR esearch( SBIR) Phase1 project addressesth e developmento f a
bacterial culture to degrade PCBs (polychlorinated biphenyls) in contaminated soils and
sediments. PCBs are persistent, toxic contaminants which accumulate in the fatty tissues of
animals,c ontaminatingf ish and humans.P CB-degradingb acteriah ave beend ifficult to produce.
In2009, a readily-grownb acterials peciesw as shownb y BioremediationC onsultingI nc (BCI) to
degrade the most harmful and carcinogenic type of PCBs. This finding allows the development
of an anaerobic PCB-degrading culture for cost-etfective inoculation into PCB-contaminated
sediments. The proposed research will document the ability of BCI's culture to extensively
dechlorinate three types of commercial PCB mixtures, and will develop methods of rapid
culturing.
The broader/commerciailm pactso f this researcha ret he developmento f a bacteriai noculantt hat
will degrade PCBs in soil and sediment. PCBs are toxic chemicals used historically as heatresistant
fluids in many industrial applications, including transformers in the electric utility
industry. Several hundred million pounds were manufactured and disposed, resulting in
contamination of soils and river sediments. The recent finding at BCI, that a strain of
dechlorinating bacteria is capable of dechlorinating PCBs. provides an opportunity for BCI to
develop a commercial culture for inoculating contaminated sites with PCB-degrading bacteria.
The marketing of this product will be complementedb y our already-successfusl aleso f other
dechlorinating cultures used in treatment of contamination by diverse chlorinated compounds.
Major stakeholdersin the utility industries,a nd remediationc ontractors,h ave expressedin terest
in partnering with BCI and/or obtaining culture.